Gravitational Radiation

An award to Professor J. Winicour of Pittsburgh University is recommended to enable him to develop reliable computational codes for the theoretical analysis of gravitational radiation expected to be generated from the collision of neutron stars and the coalescence of black holes. The sought for time profile of gravitational wave amplitudes from binary black hole systems is important information for increasing the sensitivity of gravitational antennae by filtering the signal from the noise.